Acquisition of Video-Based, Computer-Assisted Image AnalysisSystem

This proposal is for funds to obtain a light microscopic video imaging system for use in fundamental studies of cellular structure and function in plants and animals. It will also be used for macroscopic studies involving growth, development and rapid movement of plants.